Dissertation Research: Connectivity and Intra-Population Structure of Western South Atlantic Green Sea Turtle (Chelonia mydas) Foraging Populations

Robert DeSalle DEB- 0407722 DDIG Abstract
Connectivity and Intra-Population Structure of Western South Atlantic green sea turtle (Chelonia mydas) foraging populations

Genetic methods will be employed to test hypotheses about the
dynamics of major Western South Atlantic green sea turtle (Chelonia mydas)
foraging groups. In this approach major objectives are to: 1) Determine
genetic relationships between the study populations and other regional
green turtle breeding and feeding aggregations; and 2) Obtain an
unprecedented picture of the mating dynamics and population structure of
these turtles.

The scientific significance of the study derives from otherwise
unobtainable insight into how these turtles move in time and space,
relationships of genetic composition of the turtles and key biological
factors, and conservation priorities. This information enhances basic
knowledge of population structure of these turtles in a key but
inadequately researched area, with applications to other species worldwide.
In the course of the project, education and training are promoted, and
underrepresented groups from geographically disparate regions are included.
In addition, a sustained partnership between scientists in Brazil and the
United States is expanded, and results are communicated in various
languages to diverse audiences. The broader impacts of the research thus
include benefits from the diversity of participating programs, frequent
presentations and workshops, improved research content and infrastructure,
and broad dissemination of results.